Workshop on "Biological Collection Resources for the 1990's"Washington, DC; October 1988

This project will allow the systematic community to assess the status and the future of biological collections resources as we enter the 1990's. A workshop will be held in early October, 1988, focussing on institutional needs, specific new problems associated with data management and networking of collections, and the demands on systematics resources. Participants will include museum professionals, representatives from several societies of systematic biologists, data management professionals, and other users of systematic collections. As a foundation for the workshop, data will be gathered on the current status and needs of systematic collections of all sizes and types. These data will be analyzed before the workshop and presented, along with the results of the workshop deliberations, in a comprehensive summary report and series of recommendations to the National Science Foundation. This is the first national-level workshop to integrate the imperatives of information management, as considered by data management professionals, into the planning of broader institutional needs for systematic collections. The workshop is unique in representing the perspectives of those doing research as well as museum administrators. It will also integrate data from earlier symposia sponsored by the Association of Systematic Collections on living and culture collections and on orphaned collections.